EAGER: Collaborative Research: A Secure and Resilient Virtual Trust Routing Framework for Future Internet

Current network-centric Internet service model is prone to
resource exhausting attacks such as Distributed Denial of
Services attacks. Due to the resource sharing nature and
non-coordinated monitoring capability of the current Internet,
it is difficult to quickly identify attack sources. Second, a
new trend is to develop a user-centric Internet service model,
in which traditional local network services are outsourced to
remote service providers such as for cloud services. This new
trend allows end users to fully control remote service nodes,
their interconnections and routing, which imposes great threats
on network resource allocations. Thus, it is highly desired
that the future Internet is designed to provide a secure
service domain that is both network-centric and user-centric.
As a fundamental core to this goal, a secure and resilient
virtualized routing architecture in a global inter-networking
environment is explored to provide network resource reservation
protection both at the network-centric and the user-centric
level. A novel attribute-based, cryptography-based approach to
construct secure virtualization is to be developed.
Furthermore, an architectural solution to address the policy
enforcement and inter-domain trust management is also
considered. The end goal is to greatly improve the efficiency
of attack monitoring and intrusion detection and to increase
the resiliency of the future Internet. This is a collaborative
exploratory project bringing together researchers from the
University of Missouri-Kansas City, Arizona State University,
and Osaka City University, Japan. All research results will be
made available to the scientific community.